Improving Instructional and Informational Technologies to Enhance STEM Education at SWC

The purpose of the Improving Instructional and Informational Technologies to Enhance STEM Education project is to develop and expand training and educational opportunities in math, science, and computer technology skills. This project will allow the college to greatly enhance and strengthen the STEM courses it provides as well as its ability to reach and attract a larger group of
potential students, even at the high school level, who will have had a greater exposure to technology as an area of study and a possible career choice. The project provides a well- constructed implementation plan as well as a thoughtful process for monitoring progress, relying on the input of many stakeholders for guidance and support, and including a multi-layered process for evaluating performance.
The goals of the project are:
1. To enhance STEM curriculum at SWC
2. To expand SWC's Computer Systems Technology curriculum
3. To strengthen the IT infrastructure at SWC
4. To provide community outreach opportunities

This project can have a profound impact in providing a local pool of trained professionals dedicated to the growth and development of their home community.